Tera Mining: A Testbed for Distributed Data Mining over High Performance SONET and Lambda Networks

The researcher developed an international optically switched data mining testbed called the Tera Mining Testbed, linking the US, Canada and Amsterdam initially, and which supports the remote analysis and distributed mining of Gigabyte and Terabyte size data sets.

The researcher developed specialized protocols for moving data efficiently over high performance networks without the necessity of network tuning by striping data across networks and using related methods. The researcher also developed high performance data servers for OC-XY networks and optical switched networks
incorporating parallel network transport and parallel input/output.